Mathematical Aspects of Classical Fields

This proposal is concerned with questions related to the behavior of
solutions to nonlinear wave equations under perturbation. In particular we
are concerned with geometric PDEs such as wave maps and Schrodinger maps.
These equations can be viewed as constrained motion in space where the
constraint forces the solution to lie on a subspace such as a manifold or
a metric space. This leads to singularly perturbed wave and Schrodinger
equations. We propose to study the relationship between the wave map
equations and the constrained motion in terms of convergence and in terms
of the dynamics of solutions. Specifically we propose to study: 1)
Convergence of the constrained motion when the data are not "well prepared"
leading to rapid oscillations; 2) the persistence of periodic,
quasi-periodic, and homoclinic orbits that asymptote to quasi-periodic
orbits; 3) wave maps into the Heisenberg Group, as a metric space; and
finally 4) the relationship between Schrodinger maps and wave maps, where
the wave map is considered as a constrained motion on a Lagrangian
submanifold of the Schrodinger map into a Kahler manifold.

The dynamics of many physical systems can be described by geometric
evolution equations. For example dynamics of the magnetization field in a
ferromagnetic material is described by the Landau-Lifshitz equation; the
study of a vibrating membrane in a crystalline structure where there is a
uniform distribution of dislocations, is described by wave equations into
the Heisenberg Group (which also arises in other physical applications such
as control theory, and the motion of robot arms). These geometric evolution
models need not be exact, but should be considered as a limit of a
singularly perturbed system. The general questions that we propose to study
are: What relationships exist between solutions of the geometric equations
and the singularly perturbed equations? How much of the rich dynamical
structure (periodic, quasi-periodic, and breather type solutions) that the
geometric equations have will persist under this type of singular
perturbation? One of the major goals of our work is to develop analytical
methods to deal with convergence questions related to this type of
perturbations. Another important goal is to develop and use infinite
dimensional dynamical systems techniques in conjunction with analytical
methods to answer the persistence question and ultimately to bridge the gap
between finite dimensional dynamical systems and PDEs.